Microgel Tethering for Integrated Microarray-Based RNA Amplification and Detection

Proposal Number: 1402706
P.I.: Libera, Matthew R.
Title: Microgel Tethering for Integrated Microarray-Based RNA Amplification and Detection

Significance:
When a patient enters a hospital with symptoms suggesting some form of infection, determining whether an infection is present can take as long as 24 hours, and identifying the specific infectious species can take 72 hours or more. During that period, patients can suffer severely, because the lack of a clear and rapid diagnosis means that a patient may not receive the most appropriate treatment, such as the administration of the correct antibiotic, for hours or even days. While new technologies based on molecular diagnostics are beginning to mitigate this problem by rapidly identifying the DNA of infecting species, these new approaches are unable to keep up with the throughput required by major hospitals where dozens of such tests must be run every day. This research project is thus studying a new technology that has the potential to not only make a rapid diagnosis but also make many such diagnoses for many different patients. This technology uses hydrogels - similar to the materials in soft contact lenses and in disposal diapers - that are microscopic in size, so only a very small amount of target DNA is required for each test. The engineering and science questions that must be addressed center, first, on how to make these microscopic hydrogels and, second, how to modify them, so the chemical reactions needed for DNA detection can proceed accurately and quickly.

Technical Project Description: Molecular diagnostic (MDx) technologies can detect infection and determine the infecting species to the level of an individual strain in times as short as one hour. However, the fundamental complexity of current MDx assays has hindered their widespread use in clinical settings. Many hospitals thus use MDx methods selectively and still rely heavily on the very slow, classical, method of sampling, culturing and phenotyping. A fundamental change to the current paradigm of MDx test development will require a new and different platform technology. We hypothesize that surface-patterned microgels can integrate detection, isothermal amplification, and extensive multiplexing in a single microfluidic chamber and thus, ultimately, simplify the overall molecular-diagnostic process. Specifically, this research project: (i) exploits an innovative, real-time, self-reporting, microarray-based detection method based on molecular beacon (MB) hybridization probes tethered to highly hydrated electron-beam-patterned poly(ethylene glycol) [PEG] microgels; (ii) is establishing a new microarray-based, isothermal, RNA amplification approach that places the amplification primers in immediate proximity to the MB detection probes and thus enables highly multiplexed assays; and (iii) takes advantage of the inherent microscaling properties of e-beam patterning and microfluidic assembly to control sample volume sizes and ultimately promote target-primer hybridization. Importantly, this project explores the new concept of solid-phase Nucleic Acid Sequence-Based Amplification (SP-NASBA) where the primers sets, like the molecular beacon probes, are tethered to surface-patterned microgels. Immobilizing the primers is a significant departure from current practice. Success will require a careful understanding of the nature and spatial distribution of chemically functional sites on the surface of an individual microgel as well as the partitioning of those sites to tether various amplification primers and molecular beacon detection probes.